Sulfur Isotope Studies of Detailed Mineral Parageneses in MVT-Type Pb-Zn Deposits, S. E. MO.: A Test of the Involvement of Multiple Basinal Fluid Sources

The source of ore fluids and their interactions with host rocks are of considerable concern in the understanding of the Mississippi Valley-type of Lead-Zinc deposits. In southeast Missouri there is a strong possibility that multiple basinal fluids were involved and indicate a more complex origin for sulfide orebodies in the region than previously modeled. This project will utilize sulfur isotope variations throughout the paragenetic sequence of sulfide deposition for a number of mines in the Viburnum Trend of the Southeast Missouri Lead-Zinc district. Results should clarify the role of successive pulses of ore-forming fluids and their interaction with host rocks.